Light Scattering and Spectroscopy in Dense Plasmas (Physics)

The goal of the research is the experimental study of dense plasmas in which collisions between charged particles and ion-ion coupling are extremely important. These plasmas are important for fundamental astrophysical studies as well as for inertial confinement fusion research.